Undergraduate Research in Biological Diversity: Phylogenetic Approaches to Biological Questions

The Undergraduate Research Experience in Phylogenetic Approaches to
Biological Problems will allow undergraduates to participate for ten weeks
during each of the summers of 2002-04. Research projects will span diverse
areas of biology from phycology, molecular evolution, behavioral ecology and
microbial diversity but will all have a common phylogenetic perspective.
Ten highly qualified undergraduates will be selected for each summer's
program from local and national institutions with attention paid to
recruiting from underrepresented groups. The main objectives of this
program are to 1) train students in basic methods of molecular biology and
bioinformatics , 2) provide a mentored research experience using these
techniques, 3) educate students about the diversity of problems to be
understood with such techniques, and 4) raise awareness of research career
opportunities. These objectives will be attained by a combination of
tutorials in theory and techniques common to all of the projects of the
program, mentored research by individual faculty, a seminar program
delivered by visiting specialists, and career advising by local staff and
former alumni of the program. The program will culminate in a day-long
research symposium presented by the participants. The long-term goals of
the experience are increased awareness of and competitiveness for careers in
research and/or university-level teaching.